Nonseparability and Quantum Chaos

The aim of this project is to show that quantum systems can be chaotic, which is thought not to be possible because a system undergoing unitary time evolution is not sensitive to its initial conditions, and sensitivity to initial conditions is an indicator of chaos. If quantum systems are not chaotic, then the correspondence principle is challenged. (The correspondence principle is a main interpretive principle of qunatum mechanics, which asserts that as the scale of a system increases, quantum physics converges on conventional physics). The key to accomplishing this aim is to examine a pair of interacting systems, because a component of a pair of such systems does not, in general, undergo unitary time evolution, leaving open the possibility of finding chaos in the time evolution of a component of such a pair. If it can be shown that quantum systems do indeed exhibit chaos, then the correspondence principle would be vindicated.